Mathematical Sciences: Polya Trees for Nonparametric Bayesian Analysis

Polya trees are a class of probability models intermediate between the more specific Dirichlet processes and the more general tailfree distributions. The proposed research project will investigate whether Polya trees provide workable solutions in some problems where Dirichlet processes are unsatisfactory. The hope is that the generality of Polya trees can be used to create models that reflect prior and posterior opinions more accurately while avoiding the computational complexity of the full class of tailfree distributions. The proposed research concentrates in four areas: 1. Modelling opinions of smoothness, monotonicity and unimodality through the joint distributions of the components of the Polya tree, 2. Modelling predictive distributions through mixtures of Polya trees, 3. Assessing the robustness of parametric models by exploring nonparametric models concentrating around parametric ones; assessing the consistency of the nonparametric models and 4. Generalizing the Dirichlet process to yield more flexible priors for the sizes of the point masses in the random distribution. A constant problem in statistics is constructing mathematical models for real world phenomena. To be useful the models must be sufficiently sophisticated to represent essential features of the phenomena accurately but must also be computationally tractable. The proposed research project investigates a class of models called "Polya trees" that generalize the well known, tractable, but somewhat limited class of models called "Dirichlet processes." The hope is that Polya trees can represent real world phenomena more accurately than Dirichlet processes while remaining tractable. The work will proceed partly through theoretical calculation, partly through computer simulation and partly through examples of Polya trees applied to real data.